Collaborative Research: Geomagnetic field strength and stability between 500 and 800 Ma: Constraining inner core growth

Earth's magnetic field protects the planet from solar particles that would otherwise erode the atmosphere. Thus, the magnetic field is thought to be an essential factor ensuring long-term planetary habitability. Today, this geomagnetic field is powered by growth of the solid inner core. But thermal models suggest Earth has not always had a solid inner core; the time of the onset of inner core growth has ranged from 500 million to more than 2.5 billion years ago. This represents a fundamental unknown about the planet. Arguably the best way to investigate this question is to use "paleomagnetism", the record of the ancient magnetic field trapped in rocks and crystals as they form. Such data have motivated the hypothesis that the geomagnetic field, and the magnetic shielding of the atmosphere from solar particles, almost collapsed 565 million years ago, but then the field slowly recovered. This event may record the birth of the solid inner core. This hypothesis will be tested through studies of rocks ranging in age from 800 to 500 million years old found in Australia, Canada and the United States. The collaborative work will involve a team of 5 scientists at 3 institutions (including an underrepresented minority and woman scientist), and will be integrated into education and outreach efforts at each university, including efforts to expand opportunities for first-generation and historically underrepresented individuals.

The time of Earth's inner core nucleation (ICN) is unknown and thus represents a first-order problem in our understanding of the planet. For decades the inner core was assumed to be billions of years old. However, viable core thermal conductivity values now span a factor of 3, with the highest values compatible with ICN onset between approximately 800 and 500 million years ago. These onset ages are predicted by many recent thermal evolution models, but a paucity of paleofield strength data has thwarted efforts seeking to determine if there is a sign of a young inner core. Recent paleomagnetic data record an unprecedented low in time-averaged geomagnetic field strength 565 million years ago that is greater than 10 times lower than the strength of the present geomagnetic field. The ultra-low field intensity is accompanied by an ultra-high reversal frequency and other indicators of unusual field behavior in 15 other Latest Precambrian-Cambrian igneous and sedimentary units. These observations and recent modeling results are the basis for the hypothesis that the geomagnetic field approached collapse in late Precambrian/early Cambrian times (i.e., the ratio of the magnetic energy to kinetic energy is less than 1) coincident with the onset of ICN. Hence, the inner core may be young. This hypothesis will be tested through the study of 4 igneous provinces emplaced between about 500 and 800 million years ago, in Australia, the US and the Northwest Territories (Canada). State-of-the-art paleomagnetic directional and paleointensity data, including single silicate crystal analyses, and U-Pb radiometric age data will allow a synoptic view of the geodynamo during the youngest predicted ages of ICN. The work will involve a team (5 PIs/co-PIs at 3 institutions) including an underrepresented minority and woman scientist. The work will be integrated into undergraduate and graduate education and outreach efforts at each university, including efforts to expand opportunities for first-generation and historically underrepresented individuals. Student teams will visit and conduct analyses in each of the laboratories, comparing and contrasting techniques. The project will be integrated into university-specific undergraduate courses in preparation for field and laboratory investigations.